Calabi-Yau manifolds and mirror symmetry

ABSTRACT DMS - 0204326.

M. Gross plans to study the geometry of mirror symmetry for Calabi-Yau
manifolds. This will be done from the perspective of the Strominger-Yau-Zaslow
conjecture and algebro-geometric analogues of this conjecture currently
being developed by M. Gross and B. Siebert. These ideas will be pursued
with a goal of finding a general mirror symmetry construction, associating
to any polarized maximally unipotent degeneration of Calabi-Yau manifolds a mirror family
of polarized Calabi-Yau manifolds. Implications of these ideas to understanding
the behaviour of Ricci-flat metrics near maximally unipotent degenerations
and the counting of rational curves using the notion of log Gromov-Witten
invariants will also be pursued.

The work proposed by M. Gross lies at the intersection of string theory
and geometry. String theory replaces the traditional notion of
the point particle with a small loop of string, moving through space-time.
To make string theory compatible with quantum mechanics, space-time must
be ten-dimensional. Since space-time appears four-dimensional, one expects
six of these dimensions to be a very small `curled up' geometric object.
These geometric objects are called Calabi-Yau manifolds. In the early
1990s, string theorists proposed a remarkable association between
completely different Calabi-Yau manifolds: certain calculations extremely
difficult to perform on one Calabi-Yau manifold could be completed
by performing completely different, and much easier, calculations on
a different Calabi-Yau manifold. This discovery was known as mirror symmetry.
Since this time, many geometers have been trying to understand
the mathematics behind this miraculous observation. The work of M. Gross
hopes to give mathematical insight and explanation for the phenomenon
of mirror symmetry.